Mathematical Sciences: Adaptive Pseudo-spectral Methods withApplications to Unsteady Combustion Problems

This research program intends to develop techniques in adaptive pseudo-spectral methods for combustion problems, with special attention paid to bifurcation, chaoticity and two dimensional problems. The research results will have applications in combustion engineering and wave phenomena.